Teaching Lab for Remote Sensing and GIS for Geography

The use of remote sensing and Geographic Information System (GIS) data in research today is an essential skill for every geographer. This project, therefore, has established a teaching facility in Remote Sensing/GIS for the Geography Department. The equipment and facility are primarily used for teaching undergraduate students to analyze remotely-sensed data and combine it with GIS. It is also expected that the project will foster the development of remote sensing and GIS programs, and facilitate undergraduate education and training in the region.